Noncompetitive Inhibition of the Acetylcholine Receptor

The control of skeletal muscles by the brain requires the transmission of electrical signals down nerve fibers to the muscles. When the electrical signals reach the end of the nerve fibers, a chemical, acetylcholine, is released and diffuses across the space between the nerves and muscles. The acetylcholine that reaches the muscles binds to a molecule in the muscle membrane, the acetylcholine receptor, and opens an ion channel in the receptor molecule which starts a series of events leading to the contraction of the muscle. In addition to acetylcholine, many drugs bind to the acetylcholine receptor. Some of these drugs, i.e. noncompetitive inhibitors, bind at sites different from where acetylcholine binds. These noncompetitive inhibitors block the effects of acetylcholine. The purpose of this research is to understand at a molecular level how these noncompetitive inhibitors block the effects of acetylcholine. Because the acetylcholine receptor from Torpedo electric organ is very similar to human acetylcholine receptor and is the richest source of receptors, the Torpedo will be used as a model. Fluorescence techniques will be utilized to determine whether different types of noncompetitive inhibitors perturb 1) the distance between drug binding sites, 2) the orientation of bound drugs, 3) the distance from drug binding sites to the membrane surface, 4) the rotational constraints of lipids proximal and distal to the receptor. The ability of a variety of noncompetitive inhibitors to perturb the above parameters will be correlated with their capacity to inhibit receptor functional activity. Because the acetylcholine receptor is structurally similar to other ligand-regulated ion channel molecules, the research should advance the basic understanding of how drugs, especially general anesthetics, modulate the functional activity of ligand-regulated ion channel molecules.